Axiomatic Study of Solutions

This project is part of an ambitious effort by mathematical economists to identify and rigorously study fundamental principles of individual and collective choice. These principles, when applied to specific problems, take the form of axioms and have proved extremely powerful in providing new insights into the solutions to economic problems and in unifying the varied areas of economic theory. This project studies and characterizes solutions satisfying the augmentation principle an its "dual", the consistency principle. Consistency is the property that whatever outcome of any subproblem where subproblem roughly means a problem derived from the original by considering separately a subset of the agents, and their resources, from the original problem. Augmentation works in reverse: any solution to a problem should be consistent with the solution to a larger problem of which the given problem is a subproblem. The principles are applied to the following classes of economic problems: bargaining, bankruptcy and taxation, cost allocation, resource allocation in economies with public godds. This line of basic research is important because it helps us understand the boundary between which combinations of social objectives are feasible and which are not. For example, the project determines when the Lindahl correspondence, one of the main theoretical tools for allocation in public good economies, satisfies fundamental principles of social choice and develops precise tools for quantifying the extent to which a given correspondence fails to meet a given requirement.